NER: Computing Architectures for Coupled Nanomagnets

CCR-0210421
Wolfgang Porod and Gary H. Bernstein
"NER: Computing Architectures for Coupled Nanomagnets"

We explore the feasibility of developing computing architectures
implemented in magnetically-coupled arrays of nanometer-sized dots and
pillars. Similar to the electronic Quantum-Dot Cellular Automata (QCA)
scheme, which was previously developed by the Notre Dame group,
information is encoded in the magnetization of single-domain
permanent-magnet structures, and the physical interaction between
neighboring magnets provides the local connectivity. The main goal of
this project is to investigate how logic functions can be realized in
structured arrays of coupled nanomagnets. We propose a joint theoretical
and experimental approach to explore the feasibility of such magnetic
QCA-like architectures for computing and signal processing. Once
feasibility of elementary logic functions is established, one may
envision special-purpose cellular processor cells composed of coupled
nanoscale magnetic sensors and memories. The robustness of such magnetic
systems opens the potential for applications where nanometer-sized, yet
rugged, systems are required with a wide range of operating
temperatures.